Postdoctoral Research Fellowship in Chemistry

Dr. Eric Van Anslyn has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Anslyn's doctoral degree was from the California Institute of Technology under the supervision of Professor Robert H. Grubbs. He intends to continue his research at Columbia University under the sponsorship of Professor Ronald Breslow. Dr. Anslyn's area of postdoctoral research is the development of ribonuclease Mimics.